Comparative Stem Photosynthesis between Desert and Mediterranean Legumes

Although stems are the second most important photosynthetic organ, very little is known about stem photosynthesis. Little is known about adaptation or acclimation of stem photosynthesis to different climatic conditions. Studies of comparative leaf photosynthesis on plants from different climates have been pivotal to understanding the mechanisms by which plants survive in a diversity of habitats. Similar studies on stem photosynthesis, particularly in mediterranean and desert taxa, are required to understand the significance of stem photosynthesis. The objective of this proposal is to measure stem photosynthesis for mediterranean and desert taxa during the winter and summer. Comparisons of these results will test for stem photosynthetic adaptation to these different habitats. Furthermore, a mathematical model of canopy stem photosynthesis will be developed. The model will be able to predict the importance of stem photosynthesis to a diversity of species in a series of different habitats. This research will greatly expand our knowledge about the significance of stem photosynthesis to plants. This information can be applied to analyses of plant success in various environments. Furthermore, the data collected in this study are crucial for understanding the importance of stem photosynthesis to growth of legume crops in agroecosystems.